Product Liability, Research and Development, and the Innovation Decision

This proposal examines how changes in product liability law over time influence patterns of innovation in industries. The project outlines an interesting mix of theory (relating to the role of incentives in regulation) and empirically-based application (using a large data base on insurance practices), and builds on earlier work of the researchers that has had an important influence on the development of regulatory policies. The primary hypotheses of the project are well-defined and deal with the effects of product liability costs and management decisions on research and development expenditures and new product introductions. The selected data sets are appropriate to the study of these issues and will allow for detailed analyses relating to the effects of regulatory policies on industries of specified sizes and types. Results of the research will lead to better models of the firm, emphasizing the influence of the real- world legal environment, and a better understanding of the criteria by which to assess legislation dealing with innovation and product development.